Mathematical Sciences: Lifting Properties of Invariant Kernels and Applications

This research will focus on applications of the theory of generalized Toeplitz kernels to problems in analysis and probability theory, especially to weighted norm inequalities and moment problems. One direction this work takes concerns stationarity of stochastic processes. A generalized notion of stationarity for such processes arises from the theory of singular integrals through the consideration of generalized Toeplitz kernels. The characterization of the processes having covariance kernels that are such was given using lifting properties of the kernels. The classical stationary processes being those that have covariance kernels that are Toeplitz or invariant occur as special cases. Present work is planned in dealing with kernels that are invariant under one-parameter groups of transformations and the treatment of bidimensional interpolation problems with a goal of providing a bidimensional version of the classical Helson-Szego theorem of prediction theory. A second application of this work will be sought in the study of lacunary coefficients of classes of analytic functions. The prototype of the theory is in the work of Paley which asserts that functions in Hardy space with lacunary coefficients are square integrable . A dual result derives from Hankel forms which are effectively the mirror images of Toeplitz forms. New results are expected which can be translated into weighted norm inequalities for Fourier transforms. In addition to prediction theory this work relates to ideas in quantum theory, scattering structures and systems theory, as well as moment problems in engineering.